SBIR Phase II: Critical Molecule Detector

9522189 Tekula The research conducted under this award will investigate a critical molecule detector for single biological cells. This non-invasive, real-time, high resolution device employs stimulated Raman scattering to measure the concentrations and temporal evolution of several different molecular species. The Raman scattering diagnostic technique offers an attractive alternative to the often used laser induced flourescence. It allows the measurement of multiple species even in aqueous solutions, and signal enhancement is possible by utilizing resonance Raman techniques. The proposed detection device has applications in many fields for the continuous measurement of several molecular concentrations in small samples. This includes virus and cholesterol measurements, blood gas analysis, drug monitoring and manufacturing, and possibly environmental analysis.